Shipboard Technician Support

9701300 Freitag This award to University of Rhode Island provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Endeavor, a research vessel operated by the Graduate School of Oceanography as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct a diverse suite of oceanographic studies in the North Atlantic Ocean in 1997. ***